Workshops on NASA Apollo Mission Audio as a Community Research Resource

The ability for human teams to work collaboratively together to solve complex problems relies on effective communications, typically relying on vocal communications. Unfortunately, the availability of naturalistic team/task-oriented communications for research in speech and language processing, as well as human factors and psychology for problem solving and team dynamics does not exist today. This project will involve the organization of a series of mini-workshops to advance the development of a future community resource based on the first massively large corpus of naturalistic data spanning years from hundreds of individuals working on Apollo missions, which solved one of humanity's greatest challenges -- placing a man on the moon and returning him to Earth safely. This future community resource will benefit research communities spanning technology, science, education, and history of technology. A clear added benefit is the preservation of the voices of 1000's of scientists, engineers, and technicians who made one of humanity's greatest technical achievements possible.

This project will conduct mini-workshops to collect research community input for the development of the first massively large community resource of naturalistic audio data spanning years from hundreds of individuals working on Apollo missions. This corpus, called FEARLESS STEPS, was created as a result of a previous NSF award and represents a real-world, multi-subject, problem-solving communications corpus that is real and not simulated. The collected feedback from these mini-workshops will inform the team that created the original corpus of the community users' current needs and requirements for the future community resource. These mini-workshops would include events organized at: (i) ISCA INTERSPEECH-19, (ii) U.S. Library of Congress (Audio Preservation Day), (iii) ASA-19 Acoustical Society, (iv) NASA Human Performance Meeting, and (v) Education/Historian visits. The technical goals of the mini-workshops are: (i) conducting community outreach mini-workshops to collect feedback from the science and technology communities, as well as those in historical and educational domains; (ii) developing a platform for collecting and analyzing feedback from the research community; and (iii) providing infrastructure support to develop example FEARLESS STEPS Apollo audio sets to be shared at workshop/meetings for continued community outreach. Research advancements today in speech and language technology rest on advanced machine learning concepts, which require extensive audio data for training effective models, and it is imperative that the academic community have access to massive audio data which is naturalistic, real-world, multi-speaker, task directed, and freely available to all.